The 11th International Symposium on Cationic Polymerization and Related Ionic Processes; Borovets, Bulgaria; July 5-8, 1993

This grant provides partial support for the attendance of Americans at an important international meeting dealing with cationic polymerization. The Symposium, sponsored by IUPAC, will beheld in Borovets, Bulgaria, from 5-8 July 1993.